Theoretical Studies of the Hydrated Electron, Excess Electrons Interacting with Water and Methanol Clusters, and of Biomolecule Energy Landscapes

Kenneth Jordan of the University of Pittsburgh is supported by an award from the Theoretical and Computational Chemistry program for research to develop theoretical methods for understanding hydrated electrons and flexible biomolecules. The work is producing an enhanced understanding of the behavior of excess electrons in hydrogen-bonding solvents and of the role of weak interactions on the properties of biomolecules and of water on graphitic surfaces.

Many important chemical and biological processes, including electrochemical processes and electron transfer in photosynthesis, are driven by excess electrons in the presence of water. Despite the large number of experimental and theoretical studies of the hydrated electron and of the excess electron attached to water clusters, a comprehensive understanding of the structures and dynamics of these species is lacking. The theoretical studies being carried out by the Jordan group employ state-of-the-art electron-water and water-water potentials to simulate negatively-charged water clusters of a larger size than has been possible in the past. The work also includes two projects that advance knowledge in the area of weak interactions. The first of these involves characterizing the conformational potential energy landscape of beta dipeptides and tripeptides, while the second involves the development of accurate potentials describing the interaction between a water monomer and the graphite surface. The ultimate goal of this project is to perform simulations of water on graphite surfaces and confined in carbon nanotubes using the newly developed, accurate force fields. The work is having a broader impact on many fields of science and its impact is further broadened through the PI's extensive educational and outreach activities with the Telluride Center.